Symposium Commemorating The 20th Anniversary of the b Quark; June 29-July 2, 1997; Chicago, IL

There are six quarks. The fifth type of quark-the b quark-was discovered twenty years ago. This conference commemorates that discovery by reviewing what is known about this quark and what still has to be learnt. The grant will subsidize the attendance and participation of younger scientists at the conference.